The Effects of Animal-Sediment Interactions on Geochemical Processes near the Sediment-Water Interface

ABSTRACT

OCE-0117062

Two researcher from the State University of New York-Stony Brook will continue their research into the effects that bottom-dwelling animals have on the rates of diagenetic reactions, sediment-water solute exchange and storage of organic/mineral phases in sedimentary deposits. To achieve these objectives, the PIs will focus their research along the following three, interrelated experimental efforts: (1) irrigation, diffusion structure and optimal scaling of coupled oxic-anoxic reactions; (2) diffusive permeability of burrow linings and mucoid secretions in sediments; and (3) multi-dimensional solute distributions in the bioturbated zone. This team of scientists also plans to add CO2 and specific exoenzyme sensors to their radiometric pH/O2 sensor and use these planar sensor techniques for in-situ measurements on the REMOTS lander system. The long term goals of this research will be a model that outlines the types of transport and reaction balances occurring during early diagenesis in the bioturbated zone and an exploration of the corresponding elemental cycling and ecological implications.